Automated Visual Imaging for High School Speed Inspection of Large Structures

The inspection of structures to determine the extent of maintenance because of the aging effects requires more data than can be provided by a visual inspection. This project plans to automate the acquisition, analysis, and interpretation of visual data used for inspecting structures. The objective of the project is to develop a concept and specification for a system which integrates visual data acquisition, date conversion, visual image processing, symbolic feature discrimination and pattern recognition, and knowledge-based interpretation of symbolic features and patterns.